STTR Phase I: Plant Bioreporters for Arsenic

This Small Business Technology Transfer Research Phase I project is to develop genetically-modified tobacco and fern plants to sense bioavailable arsenic, a humam carcinogen, that is widely dispersed in the environment.
The commercial application of this project will be to assist in detection and cleanup of environmental contaminants.